Collaborative Research: Cognitive modeling of pragmatic reasoning in human languages

Human communication depends on the ability to reason beyond what is explicitly stated. People routinely draw inferences from limited information in order to understand intentions and interpret meaning. This project investigates the cognitive foundations of this ability by studying how children use and interpret scalar implicatures (i.e. "some, but not all) in different languages. Understanding how children are able to interpret meaning in different linguistic systems sheds light on how the human mind moves from literal interpretation to inference about implied meaning, a central component of human cognition and communication. The project produces publicly available data on language and cognitive development to support broader research on human intelligence, learning, and reasoning.

The project uses cognitive modeling of pragmatic reasoning in human language to examine how linguistic experience and domain-general cognitive abilities jointly shape children's inference-making. It tests the hypothesis that variation in grammatical structure influences the cognitive mechanisms children use to derive "some, but not all" interpretations. This study collects behavioral measures of language development, numerical cognition, attention, inhibition, and working memory, and applies computational modeling to quantify how these factors interact in predicting pragmatic interpretation. By comparing patterns across children exposed to typologically distinct linguistic systems, the project identifies which components of pragmatic reasoning reflect shared properties of human cognition and which arise from language-specific experience. The results contribute to generalizable theories of human intelligence, learning, and cognitive development.